Quantification of the Roles of Recepters and G-Proteins in Neutrophil Signal Transduction

9410403 Linderman This project is on research to study the relationship between receptor number, ligand-receptor binding kinetics, G-protein number and cellular responses. This involves the systematic manipulation of binding kinetics and the quantitative characterization of complex intracellular responses. The neutrophil cell responses to N-formyl peptides will be used as a model system for this study. The specific objectives of the research are: (1) to examine the role of N-formyl peptide receptors by varying the number participating in signal transduction; (2) to examine the role of G-proteins by varying the number participating in signal transduction; (3) to develop a mathematical model of receptor binding and G-protein activation; and (4) to verify the model by predicting cell responses when receptor and G-protein are manipulated. This research could lead to both improved cell response and the design of pharmaceuticals. ***